Engineerng Research Equipment Grant: Graphics Workstation

This award provides for a graphics workstation that will be used to display the results of large-scale numerical computations, including research on the computer simulation of blood flow in capillary networks, a variety of surface phenomena (fluid adsorption and diffusion in narrow capillary pores, surfactant behavior, nucleation, etc.), materials processing, and in molecular modeling of immobilized protein structures. Such simulations produce large quantities of raw data, and a sophisticated graphics station is needed to interpret and display the results. Four research groups will use the facility.